CAREER: Experimental Game Theory: Integrating Psychological Concerns with Strategic Analysis

9876079
Croson

Being an economist requires that we respond to the troubling question,
"Don't economists assume that everyone is selfish?" While it is certainly
true that most economic models involve actors who value only their own
consumption, this has long been recognized as a simplifying assumption and
not descriptively accurate. My proposed research is aimed at increasing
the descriptive accuracy of economic theory by incorporating social and
psychological concerns. The goal of my research is to demonstrate and
investigate how psychological concepts impact economic decisions. I
investigate concepts from social psychology (e.g. equity and helping
behavior) from cognitive psychology (e.g. nonconsequential reasoning and
framing) and cross-cultural psychology (e.g. collectivism and
individualism) on economic decisions like bargaining and public goods
provision. My research demonstrates the impact of these concepts on
economic behavior and suggests new, more descriptively accurate, models of human behavior.